Sparse Spectral Methods for High-Dimensional and Multiscale PDE: Foundations, Theoretical Guarantees, and High Performance Implementations

This project aims to develop dramatically improved fast and low-memory computational techniques, supported by rigorous theoretical guarantees, for approximating solutions to extremely high-dimensional and multi-scale parametric Partial Differential Equations (PDEs), with direct applications to Uncertainty Quantification (UQ) modeling complex real-world systems. The work will be achieved by infusing classical Galerkin methods for numerically solving PDEs with novel sublinear-time compressive sensing, randomized numerical linear algebra, and high-dimensional probability techniques. The result will be a new family of provably accurate Galerkin methods for approximating the solutions to a significantly larger class of extremely high-dimensional and multiscale differential equations than previously feasible. The numerical methods developed as part of this proposal will also be deployed in a new class of sublinear-time compressive sensing UQ methods specifically formulated to learn quantities of interest (modeled, e.g., as functions that depend on a large number of parameters). Additionally, the project will provide graduate students with rigorous training in PDE, UQ, and related areas essential to the project objectives.

Achieving this ambitious goal will require advances, and the training of US-based students, in several supporting computational arenas including, e.g.: (i) the development of improved sublinear-time compressive sensing algorithms for recovering functions of many variables that are compressible in, e.g., polynomial tensor-product bases, (ii) novel low-memory streaming algorithms for the sparse approximation of the eigenvectors of extremely large matrices (e.g., those arising from discretized PDEs with compressible data), (iii) improved theory for analyzing, e.g., the Fourier compressibility of solutions to PDEs as a function of the Fourier sparsity of their initial data, and (iv) the development of fault-tolerant sublinear-time compressive sensing algorithms capable of robust deployment on high performance computing platforms.